Development of Techniques for the Analysis of Iron-OxidizingPathways of Thiobacillus ferrooxidans

This is a Research Opportunities for Women, Research Planning Grant, to support preliminary studies and other activities related to the development of a research project.